Theoretical Spectroscopy and Quantum Dynamics

This project in the Theoretical and Computational Chemistry Program in the Chemistry Division involves the development of both new and improved mathematical and computational methods for calculating and predicting quantum dynamical processes of importance such as gas phase chemical reactions, intermolecular energy transfer, photodissociation, and surface processes including adsorption and diffusion. Specific theoretical tools being developed include extensions of the discrete variable representation and quantum generalized Langevin equation approaches. %%% Chemical reactions both in the gas phase and on surfaces are being successfully described by the use of increasingly sophisticated mathematical models. Several such models are being developed in this theoretical study, thus aiding our understanding and control of a number of processes such as combustion, catalysis, and the formation of molecules and materials.